Development of Undergraduate Microcomputer Laboratory for Mathematics and Computer Science Majors at Abilene ChristianUniversity

This project develops a microcomputer laboratory to be used for undergraduate mathematics courses and advanced undergraduate courses in computer science. Students in Calculus and Linear Algebra will become acquainted with a computer algebra system, such as MAPLE. The use of this system continues in subsequent mathematics courses and, hopefully, in the professional practice of mathematics. The first course in calculus is augmented by a computer laboratory course carrying one hour credit. Computer science students use the new equipment especially in courses in Object-Oriented Programming, Graphics, and Operating Systems. Software to be run includes OBJECTIVE C, C + + and SMALLTALK V.The equipment includes 16 microcomputers of 486 type networked to a LAN running the UNIX operating system. In addition, there are three mobil overhead work stations equipped with computers and LCD projection pads for classroom instructional use.